Support of SCOR Activities Related to the Interests of the NSF Division of Ocean Sciences

9422144 Gross Continuing support is provided for the international oceanographic activities of the Scientific Committee on Oceanic Research (SCOR) that are relevant to U.S. interests in marine sciences and the Division of Ocean Sciences. There are currently thirty-seven countries represented in SCOR. The Ocean Studies Board of the National Academy of Sciences serves as the U.S. national committee. Individual ocean scientists participate in SCOR activities through subsidiary bodies such as working groups and scientific steering committees. Funding will support two major SCOR activities: 1) U.S. sponsorship of focused SCOR Working Groups. Presently, there are twelve such Working Groups covering diverse ocean-science related topics. Working Groups are comprised of experts from different countries who meet on a regular basis to discuss and assess the scientific status of their topic area and produce a report that advises and provides recommendations for further research efforts. 2) Science Steering Committee activities of the Joint Global Ocean Flux Study (JGOFS) and the Global Ocean Ecosystem Dynamics (GLOBEC) program; both are part of the U.S. Global Change Research Program. These major programs have origins in U.S. and have turned to SCOR to provide a forum for international planning and coordination. SCOR's impact has and will continue to be evident in the standardization of measurement protocols, sharing of data, coordination of ship time, and the enlargement of field studies which would be impossible without international coordination.